Environmentally Benign Chemical Synthesis and Processing Using New Ionic and Radical Organocobalt Reactions

The focus of this research is the development of the ionic chemistry of cobaloxime pi-cations. Tandem sequences of cobaloxime-mediated ionic and cobaloxime-mediated radical reactions will afford methodology for the enantiospecific formation of carbon-oxygen, carbon-nitrogen and carbon-carbon bonds. The reaction chemistry will be used to develop new strategies for the synthesis of polyether antibiotics and D-aminosugars. The chemistry outlined is carried out in aqueous or biodegradable alcohol solvents with the production of metal residues that can be sequestered. Thus, the chemistry described will have an impact on the development of environmentally benign synthetic methodology. With this award, the Synthetic Organic Program is supporting the research of Dr. Bruce P. Branchaud of the Department of Chemistry at the University of Oregon. Professor Branchaud will focus his work on the development of environmentally benign synthetic methodology based on organocobalt chemistry. New strategies for the preparation of organic compounds possessing interesting biological properties will be developed.